Effective Field Theories in Higher Dimensions

Research in theoretical elementary particle physics will focus on possible
extra dimensions of space, their role in the fundamental laws of nature and
in cosmology. The research will develop specific models which utilize
extra-dimensional mechanisms for resolving several outstanding puzzles in the
standard model of particle physics, and study their experimental implications.
Extra spatial dimensions are strongly motivated by Superstring Theory, the
best developed theory for unifying General Relativity with Quantum Mechanics.
The experimental discovery of new dimensions would revolutionize our
understanding of fundamental physics and initiate an exciting new frontier of
exploration. For these reasons, the research is of the highest importance in
our quest for a fundamental understanding of the physical universe.